MCA: Using whole brain 3D microscopy to decipher the neural network of circadian eating rhythms

This project will advance our understanding of the central nervous system circuitry and brain regions that regulate when we eat. Meal timing regulates metabolism and mis-timed eating causes cardiometabolic dysfunction. Thus, discovering brain regions that underlie meal timing will have a basic science impact and may provide results that could be leveraged for biomedical interventions. This project will support the training of a mid-career investigator and will help the investigator's research move in new directions. Graduate and undergraduate students will participate in the research, which will increase their retention in science and ultimately contribute to the STEM workforce.

This project will investigate the neural circuit that controls the circadian rhythm of eating behavior by leveraging data suggesting that activating estrogen receptor signaling increases the amplitude, or strength, of the circadian eating rhythm. Aim 1 will use three-dimensional, whole-brain two-photon microscopy to visualize neural circuit correlates of rhythmic eating behavior. The neural circuity underlying the circadian eating rhythm will be imaged by contrasting immediate early gene expression patterns in whole brains explanted from female mice treated with estrogen receptor agonist or vehicle. Aim 2 will test the hypothesis that estrogen signaling in the suprachiasmatic nucleus, the main circadian clock in the mammalian brain, regulates circadian eating rhythms. In this aim, estrogen receptor function will be disabled specifically in the suprachiasmatic nucleus by adeno-associated virus microinjection. Together these studies will elucidate circadian organization of the neural circuit that controls meal timing.